Symposium on Polymer Science at the Boundaries; American Chemical Society Meeting; Chicago, Illinois, August, 1995

9522559 McCall This award provides funds to the Polymer Division of the American Chemical Society (ACS) for the partial support of the invited speakers at a symposium planned for the Chicago ACS Meeting in August 1995. The subject of this conference is concerned with the National Academy of Sciences Report Polymer Science and Engineering: The Shifting Frontier prepared by a number of key experts and sponsored by the National Science Foundation. The aim of this conference is to enhance the interface between polymer science, engineering, electronic, medicine, and other areas. %%% This award provides funds to the Polymer Division of the American Chemical Society (ACS) for the partial support of the invited speakers at a symposium planned for the Chicago ACS Meeting in August 1995. The subject of this conference is concerned with the National Academy of Sciences Report Polymer Science and Engineering: The Shifting Frontier prepared by a number of key experts and sponsored by the National Science Foundation. The aim of this conference it to enhance the interface between polymer science, engineering, electronic, medicine, and other areas. ***